Differential and Integral Equations in Physiology and Cell Biology

Ermentrout
9972913
The investigator continues work on the applications of
nonlinear dynamics to cell biology and physiology with particular
emphasis in neurophysiology. Specifically, the following problems
are studied: 1. Analysis of synaptic bistability; what is the
dynamic mechanism by which two (and more) mutually coupled
neurons can maintain activity in absence of inputs? 2. How does
adaptation enhance the synchronization of excitatorily coupled
neural oscillators? 3. What determines the form and properties
of ``lurching'' waves that arise in systems of neurons that are
coupled with delays as well as in models of thalamic
oscillations? 4. What is the effect of inhibition and slow
excitatory synapses on the propagation of waves in cortical
slices? 5. How are free and bound actin spatially distributed
in the cell; is there any nontrivial spatial dependence on the
length distribution of the polymerized molecule?
The investigator studies how mathematical methods can be
used to understand how biological systems work. Specifically, he
is interested in how nerve cells interact with each other to
produce activity that is related to behavior. For example, when a
person or animal holds something in short-term memory (like a
phone number) how does the relevant group of neurons stay on and
what turns it off? Mathematical models are created and
mathematical techniques are used to study these models in order
to suggest new experiments. During normal and abnormal behavior
parts of the nervous system are capable of producing waves that
move across regions of the brain. The investigator is interested
in what factors determine the properties of these waves, such as
their speed and shape. Finally, he studies models of the
components inside the cell that are responsible for the cell's
shape and how it moves around.